PostDoctoral Research Fellowship

This award is made as part of the FY 2015 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist. The title of the project for this fellowship to Yinkun Li is "Harmonic Maass Forms of Weight One and Arithmetic Intersection." The host institution for the fellowship is the Technical University of Darmstadt, Germany, and the sponsoring scientist is Dr. Jan Bruinier.

This award was supported with funding from the Office of International and Integrative Activities.